Instability and Transition in Transient Vertical Buoyancy Driven Flows

Past studies of transient-driven flows for moderate heating conditions have clarified the fluid flow and heat transfer responses in transient flows which remain laminar. Other and more recent experiments have shown that more vigorous heating results in many different kinds of downstream transient transport regimes, depending on the imposed heating rate. In the developing downstream response, both one and two dimensional transient instability and transition were found to arise. Measurements also show that very large transient transport effects arise locally. Conventional methods of transient instability analysis are limited to approximations which are not suitable in some of these regimes. The study proposed here includes two parallel components. The first is the transient laminar flow response to the heating condition. The second is the downstream treatment by the developing flow of small imposed and random velocity disturbances. They will be introduced, at specific times, at a downstream location inside the particular local flow regime of interest. Their evolution will be followed in time or downstream, as appropriate. The subsequent diagnostics will be of resulting disturbance growth rates and spectral distributions. The central result will be a numerical model of disturbance growth and behavior analysis to understand this phenomena. Buoyancy driven transient flows arise in many important applications. Such flows are driven by transient heating at a vertical bounding surface in a quiescent body of fluid. These kinds of transients arise in many environmental and technological processes. They may follow from changing radiative heating of a surface. The are also inherent in batch processing operations, in the start up and shutdown of equipment. They are common in electrical transients in large high density electronic arrays. They are also very important in assessing the cooling of internally heated elements after a power or pump failure. This research seeks to understand the heat transfer and flow when transient heating leads to unstable flows and to transition.